Reconstructing Phylogenetic Trees

Hagedorn
0077851
The investigator seeks advances in the reconstruction of
phylogenetic, or evolutionary, trees in biology by improving the
utility of the method of phylogenetic invariants, one of several
different methods of tree reconstruction. It would be extremely
useful to have an accurate, computationally efficient method of
phylogenetic analysis, but no such method is yet known. The
method of phylogenetic invariants theoretically has these
advantages. Modern phylogenetic methods analyze the mathematical
and statistical similarities between the nucleotide sequences of
different species. By modeling the evolution of the sequence for
a proposed evolutionary tree T as a Markov model, one can obtain
polynomials specifying the frequencies with which certain
patterns should occur in observed sequence data. These
polynomials parameterize a high-dimensional real algebraic
variety X. Finding the equations that implicitly define X is
theoretically equivalent to knowing how to determine whether T is
the "true" evolutionary tree. These equations have been
previously found for special evolutionary models such as the
Kimura 3-parameter model. The investigator studies the
invariants for the most general Markov model of nucleotide
sequences and uses a combination of combinatorics and non-abelian
Fourier analysis to find a complete set of invariants. He also
explores ways to reduce the method's sensitivity to evolutionary
noise and raising its accuracy. Advances on these issues are
essential to make implementations of the invariant method
practical for phylogenetic analysis.
The investigator develops better methods to construct
biological trees explaining the evolutionary relationships
between species. Understanding evolutionary relationships is an
important biological question, whose applications range from
aiding the discovery of the origin of life to helping the medical
community research possible vaccines and treatments for pathogens
such as the H.I.V. virus. It would be extremely useful to have
an accurate and computationally efficient method of phylogenetic
(or evolutionary) analysis, but no method is currently known to
possess both qualities. The project seeks to improve the
accuracy of the tree reconstruction method using phylogenetic
invariants. The method of invariants is a computationally
efficient method, which is known to theoretically give correct
answers. However, in practice, the method is very susceptible to
the presence of noise in the data. The investigator aims to
minimize this problem by eliminating several assumptions that
currently must be met to use the method of invariants.